RUI Research: Acoustics of Directionally Solidified Metallic Alloys

9706688 Bergman The PI proposes a three year laboratory study of the acoustics of directionally solidified metallic alloys. The effort will involve examining in detail solidification texturing as a possible mechanism for understanding the inferred seismic anisotropy of the Earth's inner core. Preliminary ultrasonic measurements by the PI have demonstrated that rectionally solidified metallic alloys can exhibit a significant acoustic anisotropy due to solidification texturing. ***